Automatic Identification Applications In Industrial Engineering

Automatic Identification technologies include bar codes, magnetic stripe, radio frequency identification, voice data identification, machine vision, optical character recognition, magnetic ink recognition and smart card technologies. They all have the same purpose - to rapidly and accurately capture data. The current BSIE curriculum does not have any exposure to the technology of Automatic Identification that is rapidly changing the practice of industrial engineering. The equipment to be acquired under this project will address this deficiency in the laboratory experience of undergraduate students in the Industrial Engineering department. The equipment to be purchased in carrying out this project will represent the variety of Automatic Identification tools. In addition to learning the capabilities of each type of identification technique, students will be required to demonstrate the usefulness of these techniques within well defined projects.